Conference: Georgia Topology Conference

The 2026 Georgia Topology Conference with the theme ”Flows, foliations and Floer homology” will be held at the University of Georgia in Athens, GA May 21-23. The Georgia Topology Conference is an annual conference that has been organized by generations of topologists at the University of Georgia over the past half-century. The conference traditionally serves as a place to showcase new and exciting results in the field of geometric topology, and as a meeting place for promising young mathematicians with established researchers in their field, fostering new collaborations and initiation of new research projects.

While the mathematical communities studying pseudo-Anosov flows and foliations and those focused on Heegaard Floer homology and contact topology have largely evolved independently, recent breakthroughs have established significant connections between the two. This conference aims to bridge these fields, fostering shared perspectives that could lead to major advances in both. We are committed to making our conferences welcoming and productive for graduate students and early-career researchers. The different career stages of our invited participants offer unique mentoring opportunities, which we believe will encourage young mathematicians from all backgrounds to participate. Information about the conference is available at: https://topology.franklinresearch.uga.edu/2026GTC